Collaborative Research: Conference: 2022 Secure and Trustworthy Cyberspace PI Meeting

This award supports development of the program for a 2-day workshop to bring together PIs from across the Secure and Trustworthy Cyberspace (SaTC) program. Specific objectives of the PI meeting include:

- to stimulate coordination and collaboration amongst SaTC PIs working on different projects;
- to foster new collaborations between SaTC researchers and researchers in other disciplines;
- to share experiences and learn from others' experiences in transitioning research into practice; and
- to develop ideas and share methods for improving education, recruitment, and career development in cybersecurity.

Building a strong community among SaTC researchers helps identify new research topics, avoid duplication of existing research, and improve educational opportunities for graduate students.

Some elements of the meeting are structured so as to mitigate risks associated with the spread of COVID-19 or the virtual participation that its spread might necessitate.